Metallomacrocycle-based Magnetic Materials

9320478 Miller This award is made in the Advanced Materials and Processing Program in the support of the research of Professor Joel Miller. Support is provided by the Divisions of Chemistry and Materials Research. The focus of the research is the development of structure-property relationships for a family of magnetic polymeric manganese porphyrin/tetracyanoethylene complexes. Emphasis will be on porphyrin ligand substitution including the design and synthesis of macrocyclic ligands with unpaired spins on their periphiry. Magnetic materials with other macrocyclic ligands such as phthalocyanines, tetraazaporphyrins and dibenzotetraaza- 14 annulenes will also be prepared. In concert with new ligands, complexes with other metals having unpaired spins such as vanadium(III), chromium(III) and iron(III) will also be prepared and characterized for their magnetic properties. Professor Miller will complement his synthetic studies with computational studies and advanced characterization techniques. Magnets are ubiquitous in technology. This research program will offer the possibility of engineering desired properties such as processibility, transparency, compatibility with other polymers, solubility and control of magnetic properties into polymeric molecular magnets.